Simulation for Computer Science Majors

The PI proposes extensive revision and restructuring of an existing simulation course designed primarily for senior computer science majors by: 1) developing an integrated set of laboratory exercises using commercially available software (GPSS/H); 2) incorporating these materials into a formal laboratory manual along with related computer science reference materials and instructions in the use of the software; 3) implementing a pilot course using this manual together with a single text in the theory of simulation; 4) evaluating the new course by collecting and analyzing feedback from students and faculty; 5) preparing a syllabus and a detailed annotated course outline for the instructor, keyed to the manual and the text; and 6) dissemination of the prepared materials. The materials developed will be flexible and highly modular allowing their adoption or adaptation at other institutions. This project will be undertaken at the University of the District of Columbia (UDC), a university whose student body is 89% minority. The instructional materials are designed to be especially helpful to computer science students by providing them with marketable skills in computer simulation which can be expected to enhance their ability to obtain professional positions with a bachelor's degree.